Inference for Average Treatment Effects

Estimation of causal effects of policy interventions such as job training programs is an
important goal of much applied economic research. Often a reasonable starting point is the
assume that assignment to the treatment is random given on sufficiently detailed observed
pretreatment variables. Under that assumption one can identify the population average
effect. This research will contribute to the literature on inference for average treatments effects under
these assumptions in three parts. First, the research will develop
large sample theory for matching estimators. By matching estimators we mean estimators
where each treated unit is matched to one or a fixed number of controls, and each control
is matched to one or a fixed number of treated units. Such pure matching estimators have
considerable intuitive appeal and have been used widely in practice, without their large
sample theory having been established other than for special cases. The result should be
an asymptotic theory for such matching estimators that allows researchers to use these
estimators in practice. In a second part, the research will investigate higher order properties
of some of the estimators for average treatment effects that have been proposed. Many
of these estimators have a nonparametric component. However, most of the literature is
silent regarding the actual choice of smoothing parameters, beyond rate conditions. This
makes it di .cult for practitioners to actually implement thse estimators. Here the plan is to
develop a mean-squared-error based criterion to derive an explicit data-driven criterion for
the smoothing parameter. In the third part, the research will compare a number of the
estimators for average treatment effects. So far a number of estimators have been proposed,
often with a small simulation study to investigate their properties. What this research accomplishes is
a systematic comparison of various estimators.

In many studies of social programs such as job training programs observational data
are used to evaluate these programs. Statistical methods for such evaluations often rely on
matching type methods that match trainees to similar controls, that is individuals who
received the training to individuals who did not receive the training with similar background
characteristics and labor market histories. A variety of such methods are currently used, with
often the properties and reliability of such methods unknown. This research investigates the
formal properties of such methods. In addition the research will develop automated procedures for
implementing some of these methods. Currently these methods often require the researcher
to make a number of choices in the implementation that potentially affect the final results
substantially, without much guidance available to guide these choices. This should make
these methods more transparent and easier to implement. Finally, the research will compare a number
of these methods in settings where the correct answers are known so as to evaluate their
performance and reach recommendations to inform the future use of such methods.